Presidential Young Investigator Awards

This PYI will investigate various aspects of the construction industry special topics of study include: automation of tasks, expert system/or contractor prequalification, evaluation advanced technology, and develop an automated contractor evaluator.